Sixth U. S. National Conference on Wind Engineering

The Sixth U.S. National Conference on Wind Engineering will be held at the University of Houston, March 8-10, 1989. The objectives of this meeting are: 1) to promote and expedite early communication of research activities and findings; 2) to exchange interdisciplinary information and knowledge; 3) to stimulate cooperative research activities, especially for integrated communication among academics, practitioners and the industries related to wind engineering. The conference proceedings will be published and distributed at the meeting.